BSM-PM: Rare Event Searches at MIT

This proposal addresses two of the most fundamental questions in nuclear and particle physics: the nature of dark matter and the origin of the universe's matter-antimatter asymmetry - why does it appear the universe is matter dominated? Axions are a well-motivated candidate for dark matter, while possible Majorana neutrinos are potential sources of matter-antimatter asymmetry. The project will conduct specialized experiments using precision measurement techniques to search for axion dark matter through the DMRadio program and for Majorana neutrinos through the CUPID neutrinoless double-beta decay program.

The technical goal is to develop robust quantum-enhanced superconducting readout systems for both initiatives. Additionally, the PI and her team will leverage data from these experiments to create advanced algorithms, including AI and machine learning techniques, to reduce noise. For the DMRadio program, the project will develop real-time SQUID optimization software for frequency scans. For the CUPID program, the project will create a robust multiplexed readout system for TES sensors based on technology developed by NIST. These projects provide critical training for the quantum workforce. The inclusion of undergraduate researchers in all aspects of the project is a key broader impact of the work.